CAREER: I/O-Efficient Geometric Algorithms

Geometric problems arise in numerous application areas such as computer
graphics, geographic information systems (GISs), spatial database systems,
computer aided design, robotics, physics, and meteorology. The field of
computational geometry is largely motivated by this fact. In the last
twenty years impressive progress has been made in the field. However, even
though computational geometry is now a rich and mature discipline, the
algorithms and techniques developed in the field have had too little
practical impact in application areas. One reason for this disparity is
that the goal of traditional algorithms design has been to optimize
internal memory computation time (CPU efficiency). However, many geometric
applications frequently involve massive amounts of data. Often the datasets
are too large to fit in main memory and must reside on disk, and
communication between internal and external memory, and not actual
computation time, is the bottleneck in the computation. This effect arises
from the huge difference in access time of fast internal memory and slower
external memory such as disks.

This project contains a challenging career development plan focusing on
Input/Output-efficient (or I/O-efficient) computational geometry
algorithms. Key components of the plan are the rich and important
possibilities for interplay between theory and practice in the area, as
well as the exciting possibilities the area gives for interdisciplinary
collaboration and for bringing research into the classroom. Theoretical
work will concentrate on developing I/O-efficient algorithms and data
structures for geometric problems. A main goal is to develop simple and
practically efficient algorithms, and in order to do so, theoretically
developed algorithms will be implemented and tested using real-life
data. In this work, focus will be on problems with direct practical
applications and on collaboration with researchers in other areas of
computer science, as well as with researchers in application areas. A key
objective of the career plan is for the PI to obtain a certain level of
expertise in select application areas and to build up a ``track record'' in
these areas. Curriculum development is also an integrated part of the plan.
Work will be done on incorporating I/O-efficiency into the curriculum of
undergraduate and graduate algorithms classes, and new classes, as well as
educational material, will be developed.

Altogether, the outcome of the project will not only be theoretical
advances in I/O-efficient geometric algorithms, but also the development
and implementation of practical efficient algorithms as well as curricular
innovations. At the same time the project will build a strong foundation
for the PIs continued work in research and education.